T4: Technology Training for Today and Tomorrow

This project awards 20 scholarships each semester and provides multiple support services to promote full-time enrollment and degree achievement in STEM technology disciplines by eligible students. The four target disciplines are Engineering, Information, Networking, and Multimedia Technologies. Awardee benefits include: mentoring by STEM technology faculty, academic/career advising, a one-day summer career preparation experience, a seminar series featuring a luncheon guest speaker from partnering 4-year institutions, industry or a former awardee; networking opportunities with employers and prior awardees, individual learning plans, and optional internships. In addition, awardees can take up to 20% of their scholarship with them when they transfer to a 4-year partnering institution.